Teaching Teachers to Teach Engineering

"Teaching Teachers to Teach Engineering" is a one-week short course offered during the summer at the United States Military Academy. The short course is offered to faculty of all engineering disciplines who want to be good teachers. The short course strives to address the needs of faculty from two-year and four-year institutions, teaching and research institutions, who are seeking high teaching standards and efficiencies in preparation. The short course addresses topics in preparation, presentation, self- critique, learning models, course and lesson goals and objectives, advanced technology, student-teacher relations, testing/grading, advising, legal aspects of teaching, research, scholarship, and time management. Participants are expected to prepare and present classes, critique others, apply short-course material in mini-class environments, and prepare an action plan for their next term. Participants will work in various size teams to develop confidence and poise in the classroom. Participants will leave the workshop with the tools necessary to present logical and thought provoking presentations to their students. They are expected to interact with faculty at their home institution to improve the teaching of others. This short course will guide faculty toward an efficient way to be a good teacher, giving them the means to teach well, while they are trying to satisfy requirements for tenure and promotion.